Committee on Human Factors

The Committe on Human Factors was established by the National Research Council in 1980 as a standing committee of the Commission on Behavkioral and Social Sciences and Education. The 1994-1995 program includes the completion of a study on human error and error management. The committee is also finalizing its report on emerging needs and opportunities in human factors research. The Committee on Human Factors is a multidisciplinary group of experts from the fields of psychology, sociology, engineering, computer science and the specialties that have dveloped in the areas of human factors. The committee provides a unique forum for the exchange of information between its sponsors and the scientific and technical communities. It is responsive to sponsor inquiries and its major efforts are of interest to all sponsors. Most of the studies of the committee result in reports made available to a regularly updated distribution list